Equipment Proposal for the Corrsin Wind Tunnel Department ofCivil Engineering

This Equipment Award will be used to upgrade the Corrsin Wind Tunnel at the Department of Civil Engineering, Johns Hopkins University. With these funds a data acquisition system, a filter/amplifier/power supply system, a local computer access, a spectrum analyzer, and the upgrading of the anemometry system will be purchased. Some of the studies that will be undertaken with the retrofitted wind tunnel are: the evaluation of the effects of miniaturization of models, measurements of flow turbulence and forced and free vibration of vortex shedding among others.